Structure and Function of the Oxygen Evolving Complex of Photosystem II

Removal of a number of regulatory proteins from photosystem II (PSII) results in a preparation containing seven protein subunits which is capable of light-induced oxygen evolution activity. At the same time, these purification routines alter the properties of oxygen evolution and electron transfer in PSII. These experiments will determine the origins of the changes in electron transfer activity. Studies will be conducted to quantify the contents of pigments and plastoquinone in PSII during purification. Removal of a 28 kDa chlorophyll-binding protein can be shown to induce alterations to herbicide-sensitive photoreduction of quinones; the properties of this protein will be examined to place it in the context of other known chlorophyll binding proteins as well as to determine its role in regulation of herbicide binding and quinone photoreduction. Additional investigations will assess the roles of several PSII-associated proteins in providing sites for the binding of extrinsic polypeptides and attempts will be made to determine whether low molecular weight peptides which copurify with PSII are essential components of activity.%%% Photosystem II (PSII) catalyzes the light-driven 4-electron oxidation of water to molecular oxygen. The use of relatively simple biochemical procedures permit the isolation of PSII from thylakoid membranes of chloroplasts. Application of non-ionic detergents to these membrane sheets permits the isolation of simpler preparations which contain reduced numbers of polypeptides, but which at the same time retain oxygen evolution activity. Removal of various polypeptides from PSII induces alterations to electron transfer activity, and the repair of these alterations has proven useful in discovering new cofactors for the oxygen evolving reaction. This research will deduce the roles of a selected set of largely uncharacterized polypeptides which, upon removal from PSII, induce changes to electron transfer activity. It will also be determined whether low molecular weight polypeptides associated with PSII preparations play significant roles in electron transfer activity.***